Cross-Pollination Skillsets: Growing Mechatronics and Agricultural Collaborations for Producing Skilled Agricultural Technicians

This project aims to serve the national interest by advancing workforce readiness of agricultural technicians. Agriculture is a top economic driver in Virginia. Both the state government and private industry are currently investing in industries focused on hydroponics, precision-agriculture, and controlled-environmental agriculture. This project directly aligns with these initiatives and will develop an agriculture-technology (Ag-Tech) curriculum that teaches skillsets needed by today’s technicians. The project will meet the NSF Advanced Technological Education (ATE) program mission by highlighting successful members of the STEM workforce from traditionally underserved groups in STEM and merging two traditionally divided areas of study into one career studies certificate. Specifically, this effort seeks to blend the mechatronics discipline with agriculture disciplines. As no Ag-Tech program currently exists within the Virginia Community College system, the project will serve as a model for those seeking to develop one. The project will play an important role in workforce development by maintaining BILT (Business & Industry Leadership Team) partnerships and using industry feedback to grow the novel Ag-Tech program.

The project will advance the understanding of modern mechatronics skills, agricultural knowledge, and leadership skills to grow a regional workforce needed to meet the growing field of precision-agriculture. The goal of this project is to develop a novel Ag-Tech career studies certificate (CSC) that can be completed at the community college in just four semesters. The scope of the project will involve current faculty and staff, industry leaders, high school instructors, and current and future Virginia Western Community College students. The project will advance understanding of mechatronics and agricultural skills needed in an Ag-Tech career through field trips to partnering industries and development of new courses through feedback from current BILT leaders. New courses will include vertical growing, autonomous vehicles, and agricultural leadership. This project will add to the field intellectually through development of a novel Ag-Tech CSC that currently does not exist in the VCCS. With the goal of producing 45 graduates, the project will benefit the local economy of Roanoke by generating $3.3 million in direct, indirect, and induced economic impact over 3 years. Evaluation of the project will be performed twice a year through student, faculty, and industry feedback. Annual evaluation activities will analyze number of participants, retention, and satisfaction with the project to determine future direction if feedback indicates changes are needed. The progress and results of the project will be disseminated through ATE Central, internally in the college, with participants at HI-TEC (High Impact Technology Exchange Conference), and potentially in peer-reviewed journals such as Journal of Engineering Technology (JET). This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.